Dissertation Research: Upper Paleolithic Subsistence Organization

For his doctoral dissertation research, Mr. James Enloe will analyze faunal materials recovered from the archaeological sites of Pincevent and Verberie, both located in the Paris basin of northern France. Both sites are attributable to the Upper Paleolithic Magdalenian culture and date to approximately 12,000 years ago. Through meticulous excavation living floors have been exposed at each to reveal well preserved hearths and associated lithic and faunal remains. Reindeer, Rangifer tarandus, make up more than 95 percent of the bones identified at each site. Mr. Enloe will inspect the bones for a wide range of attributes, including age and sex indications, breakage, cutmarks and a number of osteological measurements. These latter will serve as a first step in the refitting of individual carcasses. With these data, it will then be possible to determine whether the individual hearths were used contemporaneously (presumably by different families) and to reconstruct meat sharing patterns between them. It will also be possible to reconstruct hunting and butchering patterns. The study of recent and extant hunting and gathering societies has demonstrated that traditional groups employ a number of strategies to buffer against short term spatial and temporal variation in resource availability. These include sharing between social units and development of storage facilities. Although archaeologists have argued about the antiquity of these strategies and how they developed over time, no consensus exists. Mr. Enloe's analysis of the data from Pincevent and Verberie should contribute to a resolution. In a preliminary study Mr. Enloe has developed a refitting technique which allows bones from the same animal to be thus identified. It will be further refined in this current project. Because this technique can potentially be employed in a wide range of situations it will be used by a number of archaeologists. Thus the significance of Mr. Enloe's research extends beyond a single case study.